Search for the Neutrinoless Double Beta Decay with the LEGEND Experiment

This award supports the research team at the University of Texas at Austin in the continuation of their research activities running and building experiments designed to reveal a special property of neutrinos, which are elementary particles. If neutrinos, the most copious massive particles in the universe, are the same as their anti-particles (antineutrinos) this would lead to a characteristic nuclear decay that otherwise would not be permitted by the known laws of particle interactions. This decay is one in which a nucleus undergoes double beta decay without the emission of neutrinos. An observation of this neutrinoless double beta decay would broaden our knowledge of fundamental forces, help explain the imbalance of matter and antimatter in the Universe, and provide a glimpse onto phenomena during a very early epoch of the evolution of the Universe. To achieve necessary sensitivities, the experiments must eliminate common backgrounds due to natural radioactivity. This requires an onion-like structure of the apparatus, where each specialized layer eliminates various background components. The Texas group is developing optical fibers that surround the heart of the LEGEND detector made of crystals grown out of enriched germanium 76 isotope which may undergo neutrinoless double beta decay. All these detector components are immersed in cryogenic liquid argon which is the core of a multi-layer apparatus housed deep underground in the LNGS lab in Italy to provide shielding from the cosmic rays. The Texas team collaborates with a local Texas company to innovate fibers by making them more versatile in detecting and transmitting light marking background events in liquid argon. The Texas students and postdocs will receive valuable training in fabricating instrumentation of unprecedented sensitivity and radiopurity with a broad potential use in industry and medicine. They will develop physics simulations and modeling that utilize machine-learning and AI-based algorithms that improve the performance of such novel detectors.

The group at the University of Texas at Austin will continue research in searching for neutrinoless double beta decay (NLDBD) with the LEGEND Experiment. The discovery of neutrino oscillations established that neutrinos are massive which implies the existence of new symmetries beyond the Standard Model of elementary particles and strongly motivates further studies of properties of neutrinos, including investigating if they are Majorana or Dirac-type. Natural conjectures suggest that deeper understanding of neutrinos may offer insight into phenomena at the Planck-energy scale, broaden our knowledge of fundamental forces, may shed light onto the baryon asymmetry, and can improve our understanding of particle physics and the evolution of the Universe. The LEGEND Experiment, a program coordinated between the US and Europe, will search for NLDBD transition from Ge-76 to Se-76. The goal is to reach the half-life sensitivity of about 10^28 years in a 10 kton*year exposure of a detector with 1 ton of isotopic Ge-76 mass. The signal would be manifested by energy deposited in a single crystal, and no other activity anywhere in the detector system. LEGEND follows best practices of its predecessors and has adopted a multi-layered experimental setup composed of a water tank that houses a cryogenic dewar with both underground-mined and atmospheric liquid argon surrounding the Ge-76 crystals. The ongoing R&D program includes improvements of light and charge collection that strengthens the background rejection from the immediate vicinity of germanium crystals. The Texas group is responding to unmet needs of the collaboration by vigorously participating in the analysis of LEGEND-200 phase and in studies of improvements for the active shield based on the liquid argon. The group will collaborate with a Texas company to draw novel scintillating-and-wavelength-shifting fibers that will significantly improve radio-purity and detection efficiency of the liquid argon veto system. In addition to these hardware innovations, the group will also continue developing AI/ML methodology of self-tagging background events and pulse shape discrimination of fiber signals. LEGEND will advance knowledge about some of the rarest phenomena in Nature thus constraining evolution models of the Universe. It will establish a unique low background counting technique which may be applied outside of physics and be of general benefit to society. Applications include measurements of anthropogenic radiation in the environment or ultra-sensitive detection of radioactivity. This experimental program will educate and train early-career researchers in constructing the state-of-the-art science projects. The group will produce a recurring video or audio podcasts that discuss particle detectors bridging the gap between complex scientific concepts and an everyday life. The goal is to make particle physics a fascinating story of innovation and discovery that anyone can enjoy and learn.